Range Image Understanding

The project is an initial exploratory research effort in segmentation of range images and the development of a robust method to recover symbolic descriptors of surfaces from those images. The surfaces will be represented as polynomials, whose coefficients will be obtained from a number of explicitly determined surface points, obtained using existing techniques. Appropriate descriptors will be derived from the terms of the representing polynomials. A search will be made for more powerful and general surface descriptors. The project will also study the efficacy of the segmentation program in recovering symbolic descriptors from images containing several objects, some of which may be only partially visible.